U.S.-India Cooperative Research: Studies of Cynometalate Modified Electrodes-Electrocatalysis and Sensor Development,Award in Indian and U.S. Currency

9604863 Bocarsly Description: This award is for a US-Indo research collaboration in the field of electrochemical sensors based on new cyanometalate modified electrodes. The co-investigators are Andrew Bocarsly of Princeton University and Prabhakara Rao of the Central Electrochemical Research Institute (CERI) in Tamil Nadu. Their studies will focus on the structure and reactivity of platinum(II) and palladium(II) complexes with cyanometallates that form polymeric structures. These materials form hydrogel-like structures with unusual photochemical and electrochemical properties. Bocarsly's interest is the solid-state properties of these materials, while Dr. Rao will pursue the potential sensor applications of these systems. Both groups are strongly grounded in electrochemistry and the use of electrochemical methods. The expertise and facilities available at these two laboratories are complementary and should be enhanced by the collaboration. Scope: This research will add an international component to domestic research that is currently funded by the NSF Division of Chemistry. The discussions leading to this collaboration have been thoughtful, deliberate and point to the potential that solid scientific work of mutual benefit will result. CERI is a research facility of the central government that is managed by the Council of Scientific and Industrial Research (CSIR). The mission of CSIR laboratories is to conduct research consistent with national priorities and India's development as an industrial nation. ***